Influence of the Tibetan High Outflow on the Southern Hemisphere Column Ozone Distribution

This research deals with atmospheric dynamics and ozone transport in the southern hemisphere. A new hypothesis to explain the quasi-stationary wavenumber 1 pattern of the ozone maximum that surrounds the Antarctic ozone hole is being studied. This so-called "ozone croissant" lasts from May to November and exhibits a longitudinal preference for an elongated maximum centered south of Australia. The hypothesis here is that the longitudinal distribution of this feature is controlled by the outflow from the Tibetan high southeastward into the equatorial Indian Ocean and into the southern hemisphere subtropical westerly jet. The evaluation of this hypothesis has an observational and a modeling component. The structure and time evolution of the meteorological features will be documented and the University of Wisconsin Non-Hydrostatic Modeling System will be used for transport studies initialized with 3-dimensional ozone fields.

This project has the potential to improve knowledge of ozone variability in the Southern Hemisphere. It thus has implications for important environmental policy decisions.